Mathematical Sciences: Multi-Dimensional Statistical Analysis

This research project concerns multi-dimensional statistical analysis. The project supports work in multivariate distributions and, in particular, theoretical considerations, dependency properties, orderings and approximations of multivariate distributions, extensions of univariate distributions to higher dimensions, nonparametric families and families with marginals as parameters This research is in the general area of statistics. Multi- dimensional statistical analysis has many applications including Urn models which are used to model the contagion process, and shock models used in the context of reliability theory.